Infiltration Pathways During the Regional Metamorphism of Pelitic Schists and Quartzites

The principal investigator will study fluid infiltration patterns in rocks of the Rio Mora uplift of New Mexico, utilizing field, petrologic and isotopic techniques. Results will add significant- ly to understanding of the permeabilities of metamorphic rocks, the mechanisms that generate such permeability, the 3-dimensional geometry of fluid infiltration, and in general to the ways in which fluids interact with rocks of the Earth's crust during metamorphism.